The Hidden Fluorescent World of Coral Reefs: A Multimedia Presentation

Based on discoveries made from an active research grant, Gruber, colleagues, and students will develop multimedia deliverables that highlight the biofluorescence found in coral reefs. They include development of a multimedia exhibit containing interactive, inquiry-based modules and new videos developed off the Cayman Islands. These deliverables will share the beauty of coral reefs, the source of biofluorescence (fluorescent proteins), and the fundamental importance of coral reefs in shallow marine ecosystems. The STEM content of this project is drawn from the biological sciences, including specific topics such as marine biology, physiology, ecology, and conservation.

The exhibit will reach diverse audiences at public aquaria and at the principal investigator's institution. Learning will be studied by an external evaluator through formative assessment. The new science discoveries and related STEM content about coral reef biofluorescence also will be communicated via a web site that enables access by informal learners online. This Communicating Research to Public Audiences project is based on research grant MCB-0920572: Isolation, characterization, and evolution of fluorescent proteins from Indo-Pacific and Caribbean marine organisms.